Presidential Young Investigators Award: Characterization andRemoval of Recalcitrant Organic Matter From Water

This is an award to support research on the characterization and removal from water of organic pollutants that are recalcitrant to being removed by conventional water treatment processes used to treat water destined for human consumption. Research being conducted in this project involves the chemical characterization of organic matter not removed by coagulation, sedimentation and filtration with and without the use of ozone and determination of the best physical/chemical process-system for removal of the residual organic matter including possible intermediate treatment with ozone, advanced oxidation, ion exchange and adsorption processes. Research being initiated by this Presidential Young Investigator addresses a problem associated with the processes of treating polluted surface and groundwaters to make them acceptable for human consumption. Conventional physical and chemical treatment processes may not remove organic substances that may be converted into harmful substances by chemical disinfection. Results of this research are likely to be utilized in engineering design of systems to produce water of more acceptable quality than is now possible.